Workshop on Scientific Collaboration and Interaction with Remote, Unique Facilities, Ann Arbor, Michigan, January 21-24, 1992

This is a small invitational planning workshop on Scientific Collaboration and Interaction with Remote, Unique Facilities held on the campus of the University of Michigan on January 21-24, 1992. A major function of the workshop is to bring together members of the scientific research community who are engaged in collaborative experimental research using a unique, remote facility, with technologists and social scientists working on collaborative technology. The researches are engaged in upper atmospheric and space research utilizing the Sondre Stromfjord, Greenland Upper Atmospheric Research Facility. The goal of the workshop is to develop a plan to implement and testbed collaborative tools to be utilized by scientists engaged in collaborative and observational research using this facility. Included in these plans are design of a system for accessing the instruments at this facility from remote locations, such as at the University of Michigan. It is expected that the output of this workshop will be a proposal for establishing the experimental testbed for this collaborative effort.